Interfacial Morphology of Polymer Thin Films for Computer Memory Applications

This project involves the processing of liquid crystals dispersed in amorphous polymers that can be used for reversible optical data storage. The working principle is based on the competitive processes of phase separation and vitrification. Such liquid crystal doped polymer mixtures are spin-coated on substrates to form thin films, whose interfacial morphology is strongly controlled by their transient thermal histories. Both modeling and experimental studies are carried out to establish a firm understanding of this program. Current thin films used in the computer industry are primarily inorganic in nature. Transition metal/rare earth alloys suffer from ease of corrosion and expensive vacuum deposition processes. The organic based material being developed in this project enjoys the advantage of formation by simple spin coating and long-term stability. The use of liquid crystals in amorphous matrices exploits the strong tendency of the liquid crystals to self- assemble and the rigid, amorphous matrices to trap the transient morphology upon vitrification. Subtle differences in the thin film interfacial morphology can lead to large, easily discernible light scattering patterns, yielding high signal-to-noise ratios. In addition, the preliminary work performed to date on this novel liquid-crystal-in-polymer system indicates that fast data recording and erasure can be achieved.